Behavioral Control of Teams of Mini-Robots

This award is in the Small Grants for Exploratory Research mode. The objective of this project is the design of behavioral control techniques for a simulated network of army ant robotic devices. The devices envisioned are small, inexpensive, and identical mobile platforms which cannot transport material individually, but can cooperate to lift and carry arbitrarily large objects. The behavioral control approach seeks to minimize the complexity of the units and the communications necessary by designing their collective function into their group behavior rather than through individual performance. Each "ant" will be programmed to respond to sensory stimulus with simple reactions. The collective effect of many such reactions will be the desired maneuvering task, in much the dame way teams of humans can transport heavy objects with minimal communications. Sensory inputs necessary will include applied forces and the attitude of the load being carried. The set of behavioral reactions designed will be implemented in a computer simulation. The simulation will also model the dynamics of the load, the force and attitude sensors, "beacon" signals emitted by the units, and the possibility of uneven or rough terrain. The speed, stability and accuracy of the material transport system will be evaluated in order to further develop the controls and to suggest behavioral approaches to broader army-ant problems, such as team-forming, reorganization, navigation, and message-passing. The result of the work will be a paradigm for material transport using modular networks of small machines as opposed to using large robots to transport small objects.//